U.S.-Brazil Cooperative Research: The Fine Algebraic Structure of Derivations and Hochschild Cohomology

This US-Brazil award provides support for Dr. Daniel R. Farkas of the Virginia Polytechnic Institute to collaborate with Dr. Eduardo Marcos at the University of Sao Paulo on the fine algebraic structure of derivations and Hochschild cohomology. This project studies different types of derivations for a finite-dimensional algebra and analyzes how they all fit together. Derivations are formal operators that mimic the behavior of the derivative familiar from first-year calculus. They provide important information about algebras.

In this project U.S. and Brazilian researchers will investigate both theoretical issues and the algorithmic problems that arise in trying to produce realistic examples. Progress will rely on symbolic computations, for which a package developed at Virginia Tech will be used. Students who are part of Virginia Tech's senior/masters degree program are involved in the project as algorithm developers and programmers, and some of them will travel to Brazil as technical experts and research aides.